Ohio River Analysis Meetings 2017-2019

This award provides three years of funding to help defray the expenses of participants in the "Ohio River Analysis Meetings (ORAM) 2017-2019," the first event of which will be held March 25-26, 2017, on the campus of the University of Cincinnati. The 2018 meeting will take place in Spring 2018 at the University of Kentucky, and the meeting will return to the University of Cincinnati in Spring 2019. For additional information consult the conference website: https://math.uc.edu/ORAM.

The goal of this annual regional conference series, entering its seventh year in 2017, is to stimulate scientific exchange and to foster the area of analysis in general, and the field of partial differential equations in particular. The meetings feature invited lectures by distinguished mathematicians and parallel sessions for contributed talks, mostly by early-career mathematicians. Anticipated plenary speakers for the 2017 event include the following: Alex Iosevich, Andrea Nahmod, Stefanie Petermichl, Christopher Sogge, and Jeremy Tyson.